Wave Induced Instability of Submarine Pipes in Open Trenches

Submarine pipelines are used worldwide for a variety of purposes. They carry oil and gas from offshore fields and are used in offloading tankers and transporting liquid obtained offshore. They transport to sea, for disposal, sewage and in some cases sludge from metropolitan areas, wastewaters from industrial complexes, and heated cooling water from power plants or water to be used in Ocean Thermal Energy Conversion (OTEC) plants or acquaria. This proposal is for experimental research to study the forces imposed by waste-induced water motion on a test pipe set at various locations within an open trench of different shapes and dimensions. In practice, problems can arise in this context when large waves arrive before a pipe trench can be naturally or artificially backfilled. In the research, a 12.75-inch-dimeter test pipe will be configured for this experiment. This system will be installed offshore from Honolulu within a prepared 5.0- ft-deep seabed trench of adjustable cross-section. The approximate water depth at the site will be 37 ft. Wave-induced water motion will be perpendicular to the pipe and will be generated by 12- to 16-second swells arriving during the period April-August. Judging from past observations, wave heights to 12 ft. are virtually certain. Horizontal and vertical force data on the pipe's central test section, as well as water motion information from a nearby current sensor, will be recorded on the project boat anchored over the site. All data will be processed and anlayzed to yield Morison equation wave force coefficients as well as maximum force coefficients. Plots displaying variations in these coefficients with trench/pipe details and wave characteristics will add to the research information base and should be of considerable benefit to submarine pipe designers.